Research Instrumentation Acquisition for the Study of Microwave Integrated Circuits and Antenna Systems

9512190 Jupina This proposal request characterization and CAD tools for the design of Microwave Monolithic Integrated Circuits (MMICs), which find application in radar systems and miniature, mobile wireless personal communications. There is a planned future (1997) engineering laboratory building at Villanova which will have dedicated space for this equipment in a new anechoic chamber test facility. The specific request is for a microwave probe station, a high-end network analyzer and computer workstations to provide shielded' 4-port test capability overs an extended temperature range. ***